Three-Manifold Invariants: Towards the Property P Quest

DMS-0306774
Oliver Dasbach

It became an important question in low dimensional topology whether one
can use finite type invariants of knots and homology 3-spheres to get
more insights into classical problems like the determination of the
hyperbolic volume or the Property P quest. One of the goals of this
research project is to apply and extend ideas and methods which are
used in the theory of 3-manifold invariants, mainly quantum invariants
for knots and homology spheres, towards progress in the Property P quest.
Furthermore, these methods are combined with tools coming from the
theory of Legendrian and Transversal knots. The aim is to get
combinatorial obstructions, that are structurally new, ensuring
Property P for a knot. In turn, tools that are natural from
a more classical topological point of view are applied to the study of
quantum invariants.

It has been a huge step in the history of mankind to realize that the
earth has the shape of a sphere, i.e. the surface of a ball, rather than
it being a disk. Another possibility, for example, would have been that
the earth has the shape of the surface of a doughnut. Surfaces are
2-dimensional objects, called 2-manifolds. One dimension higher,
one has to deal with similar problems. The understanding of how our
3-dimensional universe could look like is much less developed. The
aim of three-dimensional topology is to study and classify the
possibilities how the whole universe might be shaped.
One way to generate these, infinitely many, possible 3-manifolds is
through knotted circles. One gets a new 3-manifold by taking out a small
neighborhood of a knot in a 3-manifold and inserting it in a
different way. The problem remains, how to distinguish two different
3-manifolds that arise that way. The work in this proposal studies
the effect that combinatorial and geometric properties of the knot have
on the structure of the resulting 3-manifold. Topology has been
shown to be a natural and very fruitful source for applications
in fields outside of mathematics. For example, knot theory has
applications in the study of DNA functions, in cryptography and in the
development of models for quantum computing.